Convexity and Applications

ProposalDMS-0305910
PI: Elisabeth Werner (Case Western)
TITLE: CONVEXIT AND APPLICATIONS

ABSTRACT

The PI's research is in classical convexity theory and convex geometric analysis.
A primary goal is to get a better understanding of the structure of convex bodies.
To do so she uses techniques from different areas of mathematics: analysis,
differential geometry, convexity theory, probability theory.
She investigates isoperimetric inequalities and affine isoperimetric inequalities.
These provide powerful tools in characterizing and classifying convex sets.
Through her investigation of the affine surface area -originally a concept of affine
differential geometry and occurring in the affine isoperimetric inequality- she was
lately led to an extensive study of questions of approximation of convex bodies by
polytopes.The affine surface area appears naturally in this context as it is related
to the boundary structure of a convex body. The PI has investigated and still is
investigating different aspects of approximation of convex bodies by polytopes. In
one paper, for instance, she -together with her collaborator- proved the surprising
result that random approximation by polytopes (choosing the vertices of the
approximating polytope randomly on the boundary of the body) is as good as best
approximation. Besides convexity tools, probabilistic tools,like concentration of
measure, have proved to be very efficient in convexity. The PI continues her
investigation of such probabilistic results for advancing her research in structural
results in convexity and its applications to local Banach space theory.

Past experience has led the PI to believe that purely theoretical concepts are also
useful in applications. She has experienced that the methods and results from these
areas find applications in other fields of mathematics and in applied areas:
Geometric tomography, a tool having its origins in classical convexity theory,
gives a method to recover convex shapes from its sections or projections. This is
used in computer vision and image analysis, in biology and medicine where convex
shapes(organs) occur naturally. Geometric algorithms find applications in computer
science.Tools from classical convexity theory and geometric analysis have proved
useful inquantum information theory. Convexity theory has mutually beneficial
interactions with probability theory, Banach space theory,operator theory, the new
quickly developing theory of random matrices,some directions of discrete
mathematicsincluding problems in complexity theory, problems of statistical physics,
PDEs,including non-linear PDEs arising from problems in convex analysis. The PI
finds it very stimulating to interact with researchers not only from other areas of
mathematics but also from applied areas. She has already worked with mathematical
physicists and continues to do so. In particular, she has recently started to work
on problems in quantum information theory where methods from convexity theory are
very effective.